SBP: Glass Ceilings to Diversity

This project studies what allows underrepresented groups to break glass ceilings in (1) becoming professors and (2) the reception of their innovative ideas. Women, minorities, and international students become professors at significantly lower rates than their counterparts. Even if they become professors, their scientific innovations may be received differently than those of others. These glass ceilings are studied by investigating the factors that affect whether over 1.2 million US doctoral recipients (1977-2015) become professors, and whether they become professors with long lineages of subsequent students who go on to become faculty themselves. Also studied is whether diverse individuals bring new concepts and new conceptual relations and expand the body of research in new directions. The project also examines factors that affect the citation and reception of research (net of its contribution), with attention to the work of diverse scholars. Findings will show how barriers to diversity in higher education may be lowered and overcome and what policy levers can be used to enable equal access to the professoriate and to the creation of scholarly ideas, to the benefit of science and the national welfare more generally. This project was supported jointly by the Education and Human Resources Core Research Program, the Sociology Program, and Science of Broadening Participation.

Going beyond previous studies, this project follows doctoral recipients and their careers and considers all scientific fields and multiple demographic groups. The data for this study encompass almost all scientists that entered US academia from 1977-2015. The anchor data set of degree recipients is augmented by data on their authoring activities and enriched by demographic data, academic field, and citations. Questions relating to innovation are investigated by extracting data concerning the content of publications. Following linking of the various data sets and cross-validation, statistical analyses are used to investigate the principal questions of the study. Contributions of the study include data to be publicly available, methods for processing and analyzing similar data, and findings concerning the glass ceilings.